Ring-Opening Metathesis Polymerization Mediated by Ru Fischer Carbenes: Catalysts, Monomers, and Degradable Polymers

Professor Yan Xia of Stanford University will develop new synthetic capability to produce new types of degradable polymers with controlled and tunable properties. Polymers are versatile and indispensable materials that underpin modern societal infrastructure. Strategically designed polymers that can degrade or depolymerize on demand are highly desirable for advanced manufacturing applications in the plastic, electronic, and biomedical sectors. This project integrates research and educational endeavors at several levels, creating interdisciplinary connections among organic chemistry, catalysis, and materials science for both undergraduate and graduate curriculum. The project will train the future workforce for emerging technologies while also engaging and inspiring pre-college students to pursue STEM education and careers.

Ring-opening metathesis polymerization (ROMP) of cyclic alkenes is a widely used method to synthesize functional polymers. Electron-rich enol ethers greatly suppress the activity of Grubbs catalysts used for ROMP by forming Ru Fischer carbenes and are conventionally used to quench the polymerization. But the Xia laboratory discovered surprisingly efficient ROMP of a cyclic enol ether and their copolymerization with strained cyclic alkenes, leading to new types of degradable polymers with acid labile backbones. This project explores the new modality of ROMP mediated by Ru Fischer carbenes. Ru catalysts will be optimized for the Fischer carbene reactivity on a family of cyclic enol ethers, and a new set of degradable polymers with variable functionalities and properties will be developed. This research is foundational to establish our understanding on the largely unexplored olefin metathesis of enol ethers and yields novel enol ether-containing polymers that are of fundamental and technological interest.